Development of the Component Mode Iteration Algorithm

Algebraics eigenvalue problems are frequently encountered in engineering analysis. For example, the dynamics analysis of structures leads to eigenvalue problems which are characterized by very large sparse matrices, i.e. matrices with many elements being zero. The solution of this eigenvalue problem constitutes a significant computational burden for structure models possessing thousands or tens of thousands of degrees of freedom. A new method, Component Mode Iteration, of solution shows promise. It concerges quickly to the lowest modes of a structure and the algorithm is inherently parallel, so that it would be natural to implement on a parallel processor. This Engineering Initiation project will be directed toward the further development and testing of the component mode iteration algorithm. Several refinements will be added to the current algorithm, e.g. eigenvalue shifts and automating the decision of substructure division. The institutional support is adequate and the P.I. is fully capable of carrying out the research. I strongly recommend support.